Engineering Aids to the Disabled at Mississippi State University

The proposal is to fund 5 undergraduate engineering students yearly to design aids for specific disabled individuals. The grant will expose students to a rewarding real-world design experience, and should motivate them to choose a career in engineering design and research to aid the disabled.